Pathways of Property Transformation: Enterprise Network Careers in Hungary, 1989-2000

This research will investigate how the largest Hungarian firms have altered their ownership structures during the rapid economic change between 1989 and 2000. Monthly data are available for approximately 1800 firms on changes in the leading owners, top management, product lines, capital sources, and operating locations. The ownership data define network ties among the firms. Network analytic methods will be used to study changes in a firm's position in the network structure and in the network structure itself. Sequence analysis will be used to study how firms adjust the types of ownership structure (e.g., single owner, partial bank ownership) in response to political and market uncertainties.